EMSW21 - RTG: Research Training in Mathematical Logic at Notre Dame

The logic group at Notre Dame is well established. Our graduate
training program produces doctorates who have experienced the many
dimensions of research, teaching, and mathematical communication. At
Notre Dame, the students develop a solid independent research record.
They make themselves known to the international mathematical community
by participating in conferences and workshops and giving talks, in
addition to writing papers. They have the opportunity to discuss
research with specialists from around the world, and to participate in
collaborative research. By the time they graduate, they are full
members of the international community of mathematicians. Notre Dame
offers graduate students opportunities to teach and training to help
them be successful. Our students have experienced a greater variety
of teaching experiences.

Our logic postdoctoral associates have been allowed significant time
to develop a research program of their own. They have taught students
of all levels, from first-year liberal arts undergraduates to advanced
graduate students. They have been involved in mentoring graduate
students, in leading small group learning activities, and other more
advanced aspects of faculty life.

This grant provides partial support for all of the US nationals
studying Mathematical Logic at Notre Dame, and support for the first
of a two year postdoctoral associate in logic. In addition, it will
provide some travel money for the students and postdoctoral associate,
and some money for books for the students. Finally, the grant will
provide some travel money for outside visitors to come to Notre Dame
to interact with the faculty, students, and postdoctoral associate.